GK-12, Detroit Science and Mathematics Education Fellowship Program

The project is a partnership between the Detroit Public School System, six departments in the College of Science (Physics, Biology, Geology, Mathematics, Chemistry, and Computer Science), and the College of Education on the Wayne State University campus. Teams of graduate and advanced-undergraduate students from the mathematics and science departments are working with pre-service students and teachers to enhance the classroom efforts of teachers in the Detroit Public Schools, with emphasis on the middle grades. Formal preparation of the fellows for their K-12 classroom experience is being accomplished through workshops planned and implemented by the two colleges using the input of master teachers from the middle schools with current classroom experience. In addition, the participating teachers are reviewing fundamentals and learning about current research in the fellows' fields through formal workshops designed to support joint classroom-activity planning by the fellows and teachers involved. The project supports the science and mathematics standards adopted by the Detroit Public School System and enhances materials currently in use in the schools.